Multipliers of Sequence Spaces and Strong Convergence of Trigonometric and Fourier Series

This is a three-year U.S.-Yugoslav cooperative research project in modern mathematical analysis between Naza Tanovic-Miller of the University of Sarajevo and Martin Buntinas of the Loyola University of Chicago. The investigators will study the connections between problems in Fourier analysis, summability theory and the theory of topological sequence spaces. These areas contribute to the interpretation, mathematical formulation and understanding of physical phenomena. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Grants include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.